Special Project: ADMI '96 - Building for the Future: The Symposium on Computing at Minority Institutions

9612513 Vasquez, Ramon Lewis, Forbes D University of Puerto Rico, Mayaguez Special Project: A Proposal for Assistance in Attending: ADMI '96-Building for the Future: The Symposium on Computing at Minority Institutions This grant provided travel assistance for faculty and students from minority institutions to participate in the 1996 ADMI Symposium. The 1996 Symposium incorporated major new themes: 1) to enable minority faculty to present papers on strategies for increasing the number of CISE-discipline students from underrepresented populations and to share these topics with representatives from major research universities, and 2) to provide for inclusion of student participants, giving them valuable experience in presenting research papers and providing for their participation in graduate study workshops. Participants were chosen by a selection committee following submission of their papers. A Conference Proceedings is being published containing all of the papers presented at the conference.